Purchase of Multi-User Raman Instrumentation for Chemical Analyses

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Indiana University in Bloomington will acquire a Raman Spectrometer. This equipment will enhance research in a number of areas including a) studies of transition metal enediynes for photodynamic therapy; b) transition-metal diazo complexes: photoactivated nitrogen release for DNA cleavage; c) structural studies of glasses and glass-ceramics; d) 3d transition metal coordination clusters; e) Raman studies of C-H donation and of gas/solid reactivity; and f) fundamental studies on analytical Raman spectroscopy.

A Raman spectrometer can provide important information about chemical reactivity from the scattered light as it passes through a transparent medium caused by changes in rotational or vibrational energy of the scattering molecules. Its use may enable breakthroughs in our understanding of the properties of reactive and nonreactive molecules.